Real and Combinatorial Algebraic Geometry

This project studies the related areas of real and effective algebraic
geometry, particularly enumerative problems, and combinatorial problems
arising from enumerative algebraic geometry. A focus is the real number
solutions to classical geometric problems arising from the Schubert
calculus, work that is informed by substantial computer experimentation.
These effective and computational techniques rely upon the combinatorics of
Schubert varieties, Bruhat orders, and the cohomology rings of flag
varieties, which Sottile also studies. An important part of this
project is to write a book, "Applicable Algebraic Geometry" jointly with
Jaochim Rosenthal and Alex Wang, on application-driven uses of algebraic
geometry, providing a useful and motivated introduction to algebraic
geometry for applied scientists.

Algebraic geometry, which is the study of solutions to systems of
polynomial equations, is important for its potential applications--
polynomial equations are ubiquitous in mathematics and the applied sciences.
Computational and real aspects of algebraic geometry are of particular
interest, as applications often demand explicit, real-number answers to
mathematical questions. Techniques to obtain such explicit answers
often exploit special combinatorial structures of particular problems,
and hence rely upon a good understanding of these structures. This project
increases the applicability of algebraic geometry by studying computational
and real aspects of algebraic geometry, by deepening the understanding
of related combinatorial structures, and lastly by Sottile writing an
application-driven algebraic geometry text for applied scientists with
Rosenthal and Wang.